TQFTs in Spectra

DMS-0116288
Jack Morava

The central idea of this proposal is a mathematical
definition for the physicists' notion of topological
gravity (analogous to Segal's mathematical definition of
conformal field theory) as a representation of a monoidal
category with manifolds as objects, using the geometric
realization of a category of cobordisms between those
objects as its morphism spaces; these spaces are unions of
classifying spaces for the diffeomorphism groups of the
cobordisms. In two dimensions, the resulting category
is quite similar to that considered by Segal, but it
generalizes very naturally, e.g. to four dimensions,
where it has close connections with classical general
relativity; but there is also a version for topological
(i.e, non-smooth) four-manifolds, lacking any clear
classical analog. Donaldson and Seiberg-Witten theory fit
naturally into this framework, which predicts that such
invariants should have higer-order `gravitational
descendants', e.g. higher-codimension versions of the
wall-crossing obstructions. In dimension two, this formalism
fits in well on the one hand with work of Madsen and
Tillmann on Mumford's conjecture, and on the other with the
theory of a `large' quantum cohomology studied by Kontsevich,
Manin, Witten, and others. One concrete goal of the project
is to construct a cohomological theory related to the Atiyah-Patodi-Singer eta-invariant of a three-manifold,
as Casson's invariant is related to Floer homology.

Classical mechanics studies the trajectories of point
particles in a smooth geometric background, and much
recent work in string theory can be formulated in similar
terms, with the background replaced by the
(infinite-dimensional) space of smooth loops in some
ambient manifold. However, the mathematics of these
free loopspaces is quite challenging, and their topology
(not to mention their geometry) is not yet well-understood.
An added complication is that the models studied in
quantum field theory involve topology change in a
conceptually intrinsic way, and thus seem often to call,
not for the free loopspace itself, but for a suitable
completion with nice properties -- whose nature is still
being worked out. This proposal suggests that the desired
completion is an analog, for free loopspaces, of the dual
of a finite-dimensional smooth manifold (as studied in the
1960's by Whitehead, Spanier, Atiyah, and others). This
point of view seems compatible with work of Chas and
Sullivan on string topology, with work of Cohen, Jones,
and Segal on Floer homotopy type, and with work of Ando
and myself on the Witten genus.